Operations on Hochschild Chains and Cochains

The investigator and his colleagues are going to study operations on deformation
complexes of various algebraic structures: in particular, operations on Hochschild
cochains and chains of an associative algebra, and the deformation complex of
d-algebras.

The knowledge of operations on Hochschild (co) chains should be useful for
Index theory on a (degenerate) Poisson manifold, which is of great importance
for Poisson geometry. Also, the investigator is trying to find a general simple
construction of an operad acting on a deformation complex of a general algebraic
structure. This can be helpful in studying deformations of such objects as
Hopf algebras.